Investigations of the Sources and Fate of Pollutants and Hazes from East Asia

This project focuses on the use of a regional, climate/chemical transport model (Reg-Chem-CM) to study the sources and fate of air pollution and hazes in East Asia. The project will combine diagnostic analyses of data from the region, including air quality data gathered from 5 non-urban sites in China and data from the Aerosol Characterization Experiment in Asia, with model simulations for resolving the relevant chemical and transport processes that control the fate and export of primary and secondary pollutants and hazes from the region. This research will contribute to improving our understanding of the linkages between air quality and climate change.